Visit of a U.S. Scientist to The Institute of Flood Control and Drainage Research, Bangladesh University of Engineering and Technology, Dhaka, Bangladesh

9401662 Bhowmik This is an Individual Travel award. ***